Workshop on Developing a N. American Hydrologic Data Library, Spring 2001

0110561
Lall
The objective of the proposed workshop is to develop an on-line hydroclimate data library through a coordinated multi-national effort. We anticipate that a position paper on the need for such a library, and desirable features (including data processing algorithms) and capabilities, will be prepared through remote interaction between some of the invitees and circulated in advance of the meeting. The two-day meeting will then focus on a discussion of this position paper, strategies for implementation and funding, and the development of one or more community proposals for different portions of the work identified. A strategy to integrate the technology developed from the project into the electronic data libraries of the USGS and other agencies will be developed as part of these deliberations. The recommendations of the workshop will be summarized in an article in EOS. The same article will also seek additional comments and expression of interest in participation from the community. This workshop will be held at the Lamont-Doherty, Earth Observatory, Palisades, New York in April 2001.